Foraging Behavior Simulation Software

Foraging behavior and its interactions with the environment are complex and multidimensional. Simulation holds the promise of helping laboratory biologists and field ecologists work with data and theoretical models and gain insights into behavioral mechanisms. The increasing power of desktop computers has brought computer simulation technology to anew level of accessibility. The use of simulation in foraging behavior research is in its infancy; there is great potential for its use in representation and interpretation of actual and simulated experiments. It is clear that with appropriate behavior simulation models, biologists and ecologists could make significant advances in understanding foraging processes. The goal of Phase I is to evaluate simulation techniques for a prototype foraging behavior simulation model. The approach will be to develop a shell program that will allow users to specify foraging tactics, habitat structure, etc., and to set up simulated factorial experiments. We will evaluate simulation techniques and algorithms for their specific application to behavioral processes. This project will require original research on the question of how to simulate phenomena such as decisions and spatial behavior.